The Role of 54CP in Chloroplast Protein Targeting

MCB-9507745 Hoffman One of the major unresolved problems of chloroplast protein transport is the mechanism by which proteins are integrated into chloroplast membranes. As most of the proteins that function in the light reactions of photosynthesis are embedded in the thylakoid membrane, the process by which proteins are inserted into this membrane is of great importance. The investigators have recently discovered that a chloroplast protein, 54CP,is essential for the integration of the major light harvesting protein (LHCP) into thylakoid membranes in vitro. The main objective of the present proposal is to test the hypothesis that 54CP plays a fundamental role in intrachloroplast protein targeting by examining the function of the protein in vivo. To accomplish this objective, plants are being created that are reduced in 54CP content or that express mutant forms of 54CP that confer a dominant negative phenotype. Such plants will allow the investigators to study the role of 54CP in protein targeting in vivo. Defects in protein targeting will be assessed by measuring leaf chlorophyll content, analyzing the polypeptide composition of the chloroplast membranes, determining the expression of chloroplast heat shock proteins, and by conducting a sensitive transport assay. Leaves will be in vivo labelled with 35S -Met and the distribution of specific thylakoid proteins in soluble and membrane fractions will be determined by immunoprecipitation. These experiments should reveal whether the targeting of LHCP is strictly dependent on a 54CP pathway and whether other chloroplast proteins require 54CP for targeting. These experiments might also reveal whether alternate transport pathways can compensate for defects in the 54CP pathway. A second objective is to elucidate details of the GTP hydrolysis cycle required for 54CP function. Several types of experiments are planned in this regard. First, mature 54CP and forms mutated in the guanine nucleotide binding domain will be purified and the nucleotide binding and hydrolysis activities measured. Second, these proteins will be preloaded into isolated chloroplasts and used to study LHCP trafficking in organello. If the proteins inhibit transport, further biochemical studies will be conducted to ascertain the site of action. The mutant forms of the protein might form stable complexes with other components of the 54CP dependent targeting pathway and facilitate their isolation. The proposed studies should advance our knowledge of the biogenesis of thylakoid membranes. A protein related to 54CP is found in the cytoplasm of all eukaryotes and plays a role in directing proteins to the secretory system. Similar proteins have also been found in prokaryotes though a function has not been clearly established. Thus the proposed studies should reveal insight into the ways in which 54p has evolved and functions in different organisms and organelles. %%% Plants contain chloroplasts, a highly compartmentalized organelle having an internal membrane called the thylakoid which converts the energy of sunlight into the chemical energy stored in our foodstuffs. Most of the proteins that function in the light reactions of photosynthesis are embedded in this membrane. One of the major unresolved problems of chloroplast protein transport is the mechanism by which proteins are integrated into the thylakoid membrane. The investigators have recently obtained evidence from a cell free system that a chloroplast protein, 54CP, is essential for the integration of the major light harvesting protein (LHCP) into thylakoid membranes. The investigators now propose to test the hypothesis that 54CP plays a fundamental role in intrachloroplast protein targeting by examining the function of the protein in vivo. To accomplish this objective, transgenic plants are being created that are reduced in 54CP content or express mutant forms of the protein that will interfere with endogenous 54CP function. Such plants will allow the investigators to study the role of 54CP in protein targeting in vivo. These experiments should reveal whether the targeting of LHCP is strictly dependent on a 54CP pathway and whether other chloroplast proteins require 54CP for targeting. These experiments might also reveal whether alternate transport pathways can compensate for defects in the 54CP pathway. The proposed studies should advance our knowledge of the biogenesis of thylakoid membranes. A protein related to 54CP is found in the cytoplasm of all eukaryotes and plays a role in directing proteins to the secretory system. Similar proteins have also been found in prokaryotes though a function has not been clearly established.. Thus the proposed studies should reveal insight into the ways in which 54p fits into the accurate and efficient mechanisms which have evolved for delivering proteins to specific intracellular destinations. Protein sorting is an essential process; abnormalities lead to cell death. In addition to the fundamental importance of protein targeting in sustaining life, a basic understanding of the process has relevant practical applications. For example, it is now possible to introduce foreign genes into many organisms. By understanding how organisms control protein sorting, it will be possible to control the precise localization of the proteins expressed from these foreign genes. In plants, such applications include the production of gene products that confer increased resistance to disease or stress, lead to improvements in productivity and nutritional characteristics, or enable the synthesis of bioproducts such as pharmaceuticals and raw materials f or the chemical industry. ***